Acquisition of a Confocal Imaging Spectrophotometer

Award Abstract - 9970048

Visualizing complex fluorescently labeled objects, quantifying spatial relationships among objects, and analyzing the resulting spatially explicit image data have become important and essential tools for cell, molecular, and developmental biologists. This award will support the purchase of a Leica Confocal Imaging Spectophotometer that will allow the Department of Biological Sciences at Dartmouth College to obtain more detailed three-dimensional information from fluorescent specimens. Faculty and students at Dartmouth will use this instrument in a variety of research projects, including studies on the cytoskeleton, patterns of gene expression in developing flower primordia, gonadogenesis, and the identification of genes controlling cell fate and cell division.